Dimension reduction for high-dimensional high-order data

High-dimensional, high-order data commonly arise from a wide range of applications, such as neuroimaging, microbiology, bioinformatics, longitudinal studies, and material sciences. These data possess distinct characteristics compared with traditional low-dimensional or low-order data and pose unprecedented challenges to the statistical community. Dimension reduction often becomes the crucial first step in order to better summarize, visualize, and analyze high-dimensional high-order data. One natural approach is to unfold high-order data into matrices, followed by the use of well-established matrix dimension reduction methods. However, such operations often lead to loss of information on the intrinsic data structures and sub-optimal statistical results of subsequent analyses. In addition, the naive generalization of traditional statistical methods to high-dimensional, high-order data is often statistically or computationally infeasible. Therefore, there is a critical need for new high-dimensional high-order data dimension reduction methods.

In this project, the PI plans to develop new theories, methodologies, and computational algorithms to address a series of fundamental problems in high-dimensional, high-order data dimension reduction. The project will be focused on four major areas: (i) a general framework for regularized tensor SVD; (ii) provable regularized tensor decomposition via alternating annealing; (iii) high-order PCA with theoretical guarantees by a new high-order spiked covariance model; (iv) dynamic network community detection via tensor methods.